Topics in Phase Plane Analysis

Proposal Number: DMS-0200241
PI: Michael Lacey

ABSTRACT

Research will be conducted on several aspects of phase plane
analysis. The specific questions come from three different
areas. One is to study a conjecture of E.M. Stein on a certain
extension of Carleson's theorem. This conjecture seeks to place
Carleson in a larger context. Consider this theorem as a
supremum over all linear choices of phase functions.
Stein's conjecture concerns a supremum over all polynomial
choices of phase functions, with however the degree of the
polynomial fixed. Advances on this question already suggest
that it might be fruitful to consider certain discrete
analogues of Carleson's theorem. Here, arithmetic aspects
of Number Theory, as exemplified by the Hardy-Littlewood
Circle Method should predominate. A third area is
continued investigation into the question of the boundedness
of the Hilbert transform on smooth families of lines.

These investigations seek to deepen our understanding of
phase plane analysis: The study of functions in the temporal
and oscillatory variables simultaneously. Past successes
in this area have lead to a broadening of the synthetic
and analytic techniques that can be brought to bear on a
wide range of questions. This is especially true for the
bilinear Hilbert transform and Carleson's theorem. These
new questions are far more subtle than those addressed in
the past, and so the new techniques that we seek to develop
are hoped to be more powerful than previous ones.